Inference in Curved-Ray Tomography: Solid Earth Structure

This research is concerned with inference in curved-ray tomography as applied to solid earth structure. An objective is to analyze at a fundamental level the many steps of "data processing" involved in the current approaches to tomographic modeling; to estimate by simulation and otherwise what biases and errors they may contain; and to remedy the error by using modern techniques of estimation. Another objective is to apply existing rigorous methods of extremal inversion to tomographic reconstruction. These techniques will be applied to develop mathematical and software tools to determine precisely the extent to which it is possible to resolve features of the 3- D structure given the quantity and quality of the data available, accounting for nonlinearity of the problem using newly-developed methods of bounding the uncertainty in estimation of nonlinear funtionals.